Mathematical Sciences: Presidential Young Investigator Award

This Presidential Young Investigator Award will provide partial support for Ehud Hrushovski's research in the foundations of mathematics, more specifically, in model theory, where he is concerned primarily with the classification of first order theories.